Theory of Interfacial Phenomena: Dynamics and Statics

9406936 Saam Theoretical research will be done on systems in which the properties of interfaces play a dominant role. Included are studies of fluid dynamics in restricted geometries, directional solidification, droplet spreading, lubrication, polymer adsorption, micelle formation and structure, wetting phenomena in both mixtures of helium-three and -four and of hydrogen and deuterium, wetting in metallic films, the properties of helium-three and -four mixtures in aerogel, and the dynamics of prewetting. Techniques to be employed include Monte Carlo and molecular dynamics simulations of both continuum and lattice models, density-functionals and mean- field theory. %%% A broad research program using analytical and computational techniques will investigate a variety of physical phenomena in which the interfaces between two different phases play an important role. For instance, under what conditions does a fluid wet a surface? The properties of the interface between the solid surface and the fluid largely determines whether the fluid will wet the surface. This can have profound fundamental and technological implications. ***